Enantioselective Reactivity Studies of Transition Metal Complexes of Optically Active Polypyrazole Ligands

The focus of this research is on the design and synthesis of new N-donor ligands and metal complexes of varying structure and symmetry to develop new stereoselective reactions and to study the scope and mechanism of selected enantioselective processes. Specific reactions to be studied include the catalytic oxidation of alkenes to allylic benzoates by perbenzoate esters using copper promoters, catalytic aziridination of alkenes by copper complexes, C-C bond forming reactions promoted by lanthanide complexes and C-H and C-C bond activations promoted by rhodium compounds. With this award, the Synthetic Organic Program is supporting the research of Dr. William B. Tolman of the Department of Chemistry at the University of Minnesota. Professor Tolman will focus his work on testing the efficacy of C3-symmetry in metal promoted enantioselective chemistry. Successful methodology will have an impact on synthesis in the pharmaceutical and agricultural industries.